RUI: Boron Halide Cluster Ion Formation and Structure: Experiment and Theory

In this project, funded by the Experimental Physical Chemistry Program of the Chemistry Division, Hales will conduct theoretical and experimental research on the properties of boron-halide clusters. Candidate species include B2F5(+), B2Br5(+), B2Br3(+) and others. The structures of these complexes are predicted to be similar to those of BnHn(2-) and BnXn, where X = Cl, Br, or I. The goal of this research is to verify these predictions. This research will be conducted with the assistance of undergraduate students.

Ion-molecule chemistry is one of the core areas of contemporary chemical research. This project deals with the structure of clusters of boron halides and other species related to plasma processing of semiconductors. Computational modeling of the observed ions complements the experimental work. These cast light on the structures of the cluster ions and on ion-molecule processes that lead to those structures. This research is conducted with the assistance of undergraduate students. They will receive training in one of the contemporary forefront areas of physical chemistry in preparation for advanced studies or entry into the scientific/technological workforce.